Fiber Optics Laboratory Manuals

The PI is proposing to utilize his twelve years of experience in fiber optics laboratory education to perform two tasks: 1) develop a set of two laboratory manuals. These manuals will be designed to fulfill the needs of educators to teach fiber optics technology at the introductory or intermediate levels. 2) expand our base knowledge of future needs in the technical skills standard in photonics. This will enable us to include in our laboratory manuals experiments with brief tutorials reflective of present and future expectation of technical college graduates in programs such as fiber optics and telecommunications. The first laboratory manual will assume no previous experience in fiber optics. The intermediate manual will present some topics in photonics including optical switching, optical amplifiers and current technology in fiber optics. The PI has lined up for this task a distinguished panel of experts in this field from industry and academia. These experts will serve as technical consultants and will be monitored by other distinguished panel of experts from industry serving as an advisory board. The first draft of these manuals will be reviewed by selected professionals in academia in schools across the courtly. A final version will be compiled and made available to all for the asking.